Student Travel Support for the 2018 International Symposium on Computer Architecture (ISCA)

The International Symposium on Computer Architecture (ISCA) is a flagship conference in the area of computer architecture. The 2018 annual conference, along with several collocated workshops on related topics, will take place in Los Angeles, CA. The conference is an important venue for reporting current research on important topics addressing grand challenges in computing resulting, e.g., from the impending Moore's law slowdown of performance of computing machines. The topic is the main focus of the program area of the SHF cluster of the CISE/CCF division at NSF, and thus ISCA is a venue where major results of research supported by the program gets presented, discussed, debated and future direction of research are charted.

This award will support approximately 100 students by defraying part of their cost for travel and attendance for ISCA 2018. Since attendance to ISCA can be viewed as an integral part of computer systems design education and research in academia, the proposal would go a long way towards supporting workforce development in the important area information technology. The conference is also attended by leading researchers from technology companies (e.g., IBM, Intel, Microsoft etc.), and provides a basis for interaction between academia and industry, thus potentially enhancing technology transfer on problems of current and future societal needs. The grants to 100 students seek to enhance the diversity of the attendees, thus maintain a balance between underrepresented and other groups among the participants supported from the grant. Upon completion of the project, the awardee will submit a report to NSF with details of student experiences and the details of the expenditures towards supporting them to attend the conference and workshops collocated with it.